NSF Student Travel Grant for 2020 IEEE Computer Security Foundations Symposium (IEEE CSF), Boston, MA

The award will facilitate the participation of US-based and/or US citizen graduate students to the 2020 Computer Security Foundations Symposium (CSF). CSF, founded in 1988, is an annual conference for researchers in computer security, to examine current theories of security, the formal models that provide a context for those theories, and techniques for verifying security. The 2020 edition of CSF will take place in Boston, MA in June 2020. Attending conferences is an important component of graduate school education for our society's future computer security researchers. Students will have the opportunity to discuss leading edge research with world-class computer security researchers, and establish networks, connections, and mentoring relationships that will serve them well during their research careers.